Moduli Spaces and Algebraic Structures in Homotopy Theory

Abstract

Award: DMS-0705428
Principal Investigator: Craig C. Westerland

This research agenda has three parts. In the first, the
principal investigator proposes to study algebraic structures
inherent in the geometry of moduli spaces, particularly those
that have not been studied from an operadic point of view and
including several families of moduli spaces from differential
geometry, algebraic geometry, and physics. The second part of
the proposal concerns applications of this study of moduli spaces
to objects in homotopy theory, including equivariant homology for
the free loop space on a manifold, string topology operations for
a topological version of cyclic homology, and string topology of
classifying spaces of Lie groups. The third major project will
apply techniques from stable homotopy theory to the study of
Hurwitz spaces, in a collaboration with number theorists.

Moduli spaces are geometric objects that describe the variability
of other geometric objects. For example, any element of the
collection of all spheres centered at the origin in Euclidean
three-dimensional space is completely determined by the radius of
the circle, a positive number, so the collection of all these
spheres (each of which is a two-dimensional object) is described
by the positive half of the real number line (a one-dimensional
object). A moduli space of particular interest in this and other
ongoing mathematical research describes the variable geometry of
a surface such as the surface of a two-holed doughnut with
several points labeled or marked on it, a construction which
provides access to important questions of quantum field theory,
algebra, and geometry.